Black Sun, A Documentary Film on the 2012 Solar Eclipses

"Black Sun" is a full-length documentary film focusing on the life and research of two African American solar astrophysicists: Dr. Hakeem Oluseyi of the Florida Institute of Technology and Dr. Alphonse Sterling of the NASA Marshall Space Flight Center. Black Sun depicts underrepresented minority scientists in ways that challenge common preconceptions, and will inspire young people (particularly minorities) to consider STEM fields as a viable and exciting career option. In particular, the film shows the lives of the scientists, the scientists taking scientific observations and doing analysis, and discussing their results. Black Sun is centered on the two solar eclipses this year (2012): The May 20 annular eclipse and the November 13-14 total eclipse. This NSF RAPID grant funds the filming of the total solar eclipse in Cairns, Australia, where Drs. Sterling and Oluseyi and their team of students will conduct measurements focused on studying the extended solar atmospheric plasma.

The primary broader impacts goal is to increase minority participation in STEM fields. Black Sun will be "advancing discovery and understanding while promoting teaching, training and learning," by showing both the science and the personal aspects of minority astrophysicists. Dissemination will be done via screenings in academic settings (particularly minority-serving institutes), entry into film festivals, and promotion to science TV programs. We have already partnered with several HBCUs to screen "Black Sun".